Workshop on Physics and Experiments with Linear e+e- Colliders; Waikoloa, Hawaii; April 26-30, 1993

This award is for partial support of a workshop on physics and experiments with linear e+e- colliders. It is sponsored in part by KEK and SLAC, two of the most active laboratories involved in R&D on linear colliders. Participation is international in scope. It's the second in a series on the subject, following on the September 1991 workshop that took place in Finland.